REU Program in Forest Ecology at the Harvard Forest

This award provides funds to the Harvard Forest to support a site for an REU summer program in forest ecology. The Harvard Forest is a Long-Term Ecological Research (LTER) site involving over a dozen senior researchers from seven institutions working collaboratively to compare the impact of historically-important physical disturbances with recent and projected physical and chemical disturbances on forest ecosystems in New England. The core component of the REU program will be an independent research project conducted by each student that will provide experience in the scientific process. Independent projects will introduce students to hypothesis generation, project planning and data analysis and presentation. Additional REU educational activities will include weekly seminars on research and research methods, counseling on careers and graduate education in ecology, lunch-time student-led research discussions, laboratory discussion sessions, and field trips to off-site research locations. The Harvard Forest is well equipped for an REU program, including field, laboratory, and instructional facilities, and excellent living accommodations. Students will be advised by the principal investigators with additional guidance from other LTER researchers. Participants will be recruited with strong emphasis on participation of women, minorities, and physically challenged students, particularly those from non- research oriented colleges and universities. A program for maintaining contact and following up on student progress will be instituted to improve the program and to assess the value of the Harvard Forest program in encouraging students to pursue research careers.